FT-NMR In The Undergraduate Curriculum

9351431 Busler The project will introduce a Fourier-transform nuclear magnetic resonance spectrometer into the undergraduate curriculum for Chemistry majors and other students. The requested instrument will not only permit the resumption of standard NMR experiments but the introduction of numerous new experiments never before possible. The experiments will be performed by undergraduate students in several courses at CBU, including Organic, Physical, Analytical, and Biochemistry, as well as in original student research projects. ***